Technical Support for M.I.T. Mass Spectrometry

This award provides partial funding for a technician's position in the Department of Earth, Atmospheric, and Planetary Sciences at the Massachusetts Institute of Technology. The funds will be used to support a technician for three years. The technician will be responsible for operating and repairing solid- source and gas-source mass spectrometers housed in adjoining laboratories.